Ionically Conductive Polyelectrolyte Multilayers for Microbattery Applications

The alternating adsorption of polyelectrolytes and other multivalent organic and
inorganic species has evolved in the past decade into a quickly developing new field of
materials science. The multilayer assembly technique, which involves the alternating
adsorption of oppositely charged species from dilute aqueous or mixed solvent solutions,
has been used to create a number of systems with electrical, optical, dielectric and
electrochemical functionality. Ultrathin films with high uniformity are can be created
using layer-by-layer assembly techniques. The ease of fabrication, ability to control film
structure on a nanometer length scale, and the tunability of the final properties of the film
make polyelectrolyte multilayer approaches interesting as components in micron scale
battery applications. Recent work from the Hammond research group has resulted in a
number of microfabrication techniques that allow the incorporation of functional polymer
multilayers into micron scale devices. New work in this group has also led to orders of
magnitude increases in the solid state ionic conductivity of polyelectrolyte multilayer
films through the use of highly acidic polyions such as perfluorosulfonated ionomers, and
the incorporation of polyethylene oxide. The goals of this work are to develop new
polyelectrolyte multilayer systems with ionic conductivities suitable for thin film battery
applications, to take advantage of the nanometer scale control that multilayer assembly
processes provide to develop electrolyte films with gradient electronic conductivities for
battery electrode components, and to apply nonlithographic microfabrication techniques
developed in this group to create cheap, easily manufactured multilayer battery devices
on plastic, glass or paper substrates for plastic and paper thin film electronics
applications.